SBIR Phase I: Microfluidic Controlled Microarrays for Infectious Disease Diagnostic Applications

This Small Business Innovative Research (SBIR) Phase I project aims to integrate microfluidc sample preparation and a gel-drop microarray detection technology clinical diagnostic use. The end user will be able to perform testing for the presence of infectious disease and results within 30 minutes. Each drop behaves as a self-contained micro-test tube and each microarray will have several hundred gel-drops.

The technology represents a potentially enormous business opportunity for clinical medicine, biodefense, veterinary medicine as well food and beverage pathogen identification and environmental monitoring.